Topics in Particle Theory

***
9800741
Carone
Research in theoretical elementary particle physics will focus on (i) the phenomenology of supersymmetric theories, including the origin and pattern of particle masses, and (ii) the properties of orbitally- excited baryons. Excited baryons are observed particles whose properties may shed light on our understanding of the theory of the strong nuclear force. Supersymmetry is a leading candidate for the physics that may be discovered at the next generation of particle accelerators, and may explain many of the current mysteries in particle physics.
***